The Complexity of Problems Related to Petri Nets

This research is aimed at determining the complexity of various analysis problems for Petri Nets. The problems considered include the boundedness problem, the containment problem, the equivalence problem, various fairness problems, the liveness problem, and the reachability problem. Also considered are problems about verification questions that can be expressed via various temporal logics. The problems are considered with respect to several subclasses of Petri Nets in addition to the general case.